NRT-UtB: Neurophotonics

This National Science Foundation Research Traineeship (NRT) award to Boston University will train scientists and engineers in the emerging interdisciplinary field of neurophotonics - the use of light-based tools to study brain function at the cellular scale. Understanding how neural activities and circuits drive human computation, behavior, and psychology is motivated by a critical societal need to address brain diseases that involve disruptions or deterioration of neural circuitry - including Alzheimer's, traumatic brain injury, Parkinson's, cerebral palsy and multiple sclerosis. Recent scientific discoveries and powerful new tools in brain research have inspired broad student interest in career paths focused on understanding brain structure and function, as well as new industrial and academic career opportunities. Neurophotonics is among the most rapidly evolving research frontiers in brain science because it allows researchers to monitor and influence neuron activity and neural circuits at their most fundamental level. A prominent neurophotonic technique is optogenetics, through which communication signals from neurons are precisely monitored, activated, or inhibited using light. This project will support training for eighty (80) PhD students, including twenty (20) funded trainees, across the disciplines of neuroscience, biomedical engineering and photonics.

Trainees will become versed in the biology of neural function and the development of optical instruments, photo-excitable materials, and imaging techniques to sense and affect neural circuits. NRT trainees will graduate having attended a hands-on neurophotonics technology boot camp, participated in multiple laboratory research rotations, completed a four-course core curriculum, conducted challenging doctoral research in a neurophotonics laboratory, and written a neurophotonics-themed dissertation co-mentored by NRT faculty. The traineeship project will emphasize immersive experiential learning activities and peer-to-peer learning, two educational approaches that have been shown to reinforce learning while simultaneously improving outcomes for STEM trainees, especially underrepresented minorities. Interwoven with educational activities will be a professional preparation program that supports trainee career goals, develops communication skills, and builds professional networks. Trainee learning objectives will focus on identifying important research problems in neurophotonics, applying light-based methods to measure and control neural circuits, working on team-oriented projects, and communicating effectively.

The NSF Research Traineeship (NRT) Program is designed to encourage the development and implementation of bold, new potentially transformative models for STEM graduate education training. The Traineeship Track is dedicated to effective training of STEM graduate students in high priority interdisciplinary research areas, through the comprehensive traineeship model that is innovative, evidence-based, and aligned with changing workforce and research needs.